Pan-American Advanced Studies Institutes - PASI: Pan-American Advanced Studies Institute Program (PASI) in Computational Science and Engineering- Cordoba, Argentina; July 2002

0121876
Castillo

This Pan-American Advanced Studies Institutes (PASI) award, jointly supported by the NSF and the Department of Energy (DOE), will disseminate current and advanced computational science and engineering methodologies through a series of short courses of two weeks duration. Organized by Dr. Jose E. Castillo of San Diego State University, the PASI will take place in Cordoba, Argentina, July 2002. The lectures aim to promote in-depth computational science and engineering knowledge, encourage training, and foster cooperation among diverse researchers and lecturers of the Americas.

Course content will focus on research in areas of computational fluid dynamics, numerical optimization, parallel computing, grid generation, and geostatistical methods. Discussion, collaboration and examination of new methods will form part of the overall strategy of the lectures. Lectures and results of the scientific program will be disseminated electronically via a web site to be developed for the Institute.